Task Order 109 with Friday Systems Services (FSS) (Support of ITS/CTS Activities)

9531669 Linsky (Task Order "B") This task order with Friday Systems Services (FSS) deals with providing support to the ITS/CTS programs that support interfacial, transport and separation research. The primary type of support from FSS is in the area of developing and maintaining a computer information data base. There are three major subtasks. The first provides project data base information (project inventories; project accomplishments). The second subtask deals with obtaining information on current research trends and future needs from research leaders and principal investigators, and placing the information in a standardized retrievable data base. The third subtasks is related to building a reviewer data base system. The activity covers both the 1414 and 1417 program subelements, and funds for this task opder come from those program subelements.